SGER: Exlporatory Research on Context Interence

Machine vision systems have had rather limited success in achieving understanding of image content in general cases, and the problem remains very difficult. This award, in the Small Grants for Exploratory Research mode, supports an initial exploration of machine classification of image context, as a basis for further application of context-specific approaches to image understanding. This effort will investigate methods to automate the identification of the type of an image (such as geographical map or wiring diagram) in the initially-limited domain of drawings, and then seek a top down strategy for further image analysis once the image type is known.